Block Travel: Tenth Power Systems Computation Conference (PSCC); Graz, Austria; August 19-24, 1990

This is a block travel grant to attend the 1990 Power Systems Control Conference, Graz, Austria in August, 1990. The support by the NSF will permit a stronger United States representation at the meeting which has a prestigious international reputation.